Presidential Faculty Fellows Award - Observational Cosmology and Active Star-Forming Galaxies

Abstract John J. Salzer Wesleyan University Galaxies that have active nuclei, or regions of intense starburst activity, represent examples of the most energetic phenomena known in the universe. Galaxian activity is very common and occurs on all scales, from the super luminous quasi-stellar objects (QSOs), down to the extremely active star-formation regions in blue compact dwarf galaxies. Much of our knowledge of active galactic nuclei (AGNs) and starburst galaxies have come by studying galaxies cataloged in objective-prism surveys which used observations by Schmidt telescopes and data recorded on photographic plates. The opportunity to use more sensitive charge coupled device (CCD) detectors to survey for emission-line galaxies now exists, and initial observations have provided results that have shown great promise to provide better data. The large, deep samples obtained from CCD-based Schmidt surveys will provide exciting new opportunities to study galaxian activity of all types, and should allow us to better understand this activity in the context of galaxy formation and evolution in general. The research will involve carrying out the next generation of objective-prism surveys for emission-line galaxies. The technique to be used combines the benefits of a traditional Qchmidt telescope survey with the advantages of using a CCD detector. It is planned to survey several hundred square degrees of sky to a limiting magnitude of B = 20 - 21 over the next five years. Computer software developed specifically for this program will be used to automatically locate, extract, and classify the spectra in each field, and use pattern matching algorithms to select our sample of emission-line galaxies. An initial pilot project, carried out in the Spring of 1994, has verified that our technique is indeed capable of reaching the desired magnitude. It is conservatively estimated that 20-30 emission-line galaxies will be found per square degree, roughly 200 times the surface density of the galaxies in the Markarian survey. The emission-line galaxy candidates will be observed spectroscopically using a multi-fiber spectrograph to obtain redshifts and line strengths for the full sample. The results obtained from analyzing the data of this deep sample of AGNs and star-forming galaxies will have numerous applications to the study of galaxian activity. These include: global star-formation processes, chemical evolution in galaxies, the value of the primordial helium abundance, luminosity functions and space densities of AGN and actively star-forming galaxies, large-scale structure and observational cosmology.